Theoretical Studies of Heme Proteins

Dr. Loew is theoretically characterizing the relationship between structure, spectra, and function of heme proteins. The work is focused primarily on one class of metabolizing heme enzymes, the peroxidase, in comparison with other classes of heme proteins to understand the origin of their functional differences. Four complementary sets of studies are envisioned which utilize increasingly complex models for the heme active site. 1. Continued studies using the least complex, iron-porphine, heme model for the active site will focus on three types of calculations. In one study, the electronic spectra of complexes of Metmyglobin (MetMb) with small anionic ligands will be calculated. In another, a comparative study will be made of the resting state and putative transient peroxide complex of Cytochrome C Peroxidase (CCP) to help to further identify this species. In the third study, the spectra of the biologically active Compound-I forms of peroxidases and catalase will be calculated in an attempt to further understand the origin of the observed differences between them. 2. At the next level of model heme active sites, studies will be made of the effect of porphyrin ring substituents on the ground-state properties of CCP and related peroxidases. 3. Since the heme unit alone does not determine the function of different heme proteins, an expanded active site including amino acids near the proximal histidine ligand and the distal binding site will be used to (a) compare of the ease of formation of the biologically active Compound-I form of CCP to that in MetMb, which should help understand why two such similar proteins have different biological functions and (b) further elucidate the electron transfer mechanism from nearby candidate amino acids to the heme unit of CCP-I and identification of this still controversial radical center. 4. Full protein studies are also planned to address the effect of conformational and dynamic behavior on the function of the peroxidases, focusing on the amino acids thought to be involved in Compound-I formation and in the transfer of an electron to its heme unit. Dr. Loew will also try to understand why some site specific mutations destroy peroxidase activity, while others retain it, and the effect of mutation on the electron transfer process. The refined crystal structure of CCP will also be used to attempt to construct a primitive structure of horseradish peroxidase, with the goal of obtaining a three dimensional description of the key amino acids near the heme unit, where the greatest homology with CCP exists. If successful, three specific questions of current interest will be addressed. (1) Is the mechanism of formation of Compound-I in HRP similar to that in CCP? (2) Where is the substrate binding site in HRP? (3) Why is there no electron transfer from the protein to the heme unit in HRP-I, as there appears to be in CCP-I?